Jasmonate Regulation of Plant Gene Expression

9514034 Mullet The goals of this work are: 1) To delineate the specific cis-elements that mediate jasmonate-induced transcription of VspB, a 50 bp DNA domain that activates reporter gene transcription in response to jasmonic acid in soy beans. 2) To identify and clone genes that encode trans-factors that interact with the jasmonate response cis-elements. 3) To complete characterization of two jasmonate insensitive mutants of Arabidopsis thanlania and clone the genes identified by these mutants. %%% Jasmonates regulate the expression of numerous genes involved in plant responses to wounding, pathogens and pests as well as during specific stages of development. Jasmonic acid is derived from linolenic acid by a biosynthetic pathway and the results from this work will help to elucidate the biochemical pathways that mediate jasmonic acid modulation of plant genes. ***